Development of Hybridoma Research Laboratory

This proposal requests assistance from the National Science Foundation to establish a multiuser Hybridoma Research Laboratory at The University of Texas at San Antonio (UTSA). The laboratory will: (1) enhance and strengthen the research capabilities of life science faculty by providing expensive, state-of-the-art equipment, not presently available, to facilitate the application of monoclonal antibody (MAb) technology to ongoing and planned research programs; (2) enhance and strengthen research experiences for minority undergraduate and graduate students by facilitating the acquisition of intellectual and physical skills to become competitive in an area of biology which is rapidly achieving status as required background by the scientific community; and (3) foster research interactions between UTSA and other regional academic institutions with large minority enrollments in the biological sciences. Furthermore, the enhanced research experiences are expected to contribute to increased entry of minority students into careers in the biosciences. Initially nine investigators and their students propose to utilize the Hybridoma Research Laboratory to facilitate the application of MAb technology to ongoing research programs in physiology, molecular cell biology, genetics, biochemistry and neurobiology. These research programs will impact 14 undergraduate and 7 graduate minority students per year.//